Teacher Enhancement through Student Research Projects

New Mexico State University will conduct a four-year program to improve secondary school teaching and learning of mathematics through student "research" projects. The concept, which has been developed and successfully tested at New Mexico State by the project staff, will be transported to secondary schools and tested via this teacher enhancement program. In line with the NCTM Curriculum Standards and with principles underlying calculus reform, the idea is to transfer the emphasis from teaching by transmitting information to learning by hands-on problem- solving work. The program activities will focus on the posing and solving of substantial problems that form the basis of project-oriented learning, and on cooperative learning strategies. All three Las Cruces public schools will participate in this project, with 28 teachers as participants. The evaluation component has a unique characteristic in that a high percentage of the Las Cruces high school graduates who continue on to higher education do so at New Mexico State University. For this reason, the progress of a substantial number of students can be monitored and assessed during the life of the grant. The project staff has produced materials for over 100 undergraduate student research projects and, together with the participants, the staff will produce 100 for teacher enhancement under this grant. A leadership component is included to achieve a multiplier effect. New Mexico State University and the Las Cruces Public Schools have contributed an amount equal to 47% of the National Science Foundation request.